U.S.-Western Europe Workshop: Iterative Methods, June 11- 14, 1996, Toulouse, France

This award supports the travel of 12 Americans to a U.S.-Western Europe workshop on iterative methods at CERFACS in Toulouse, France, June 11-14, 1996. This is one of four workshops associated with the International Linear Algebra Year. The organizers are Gene H. Golub of Stanford University and Iain Spencer Duff of the CERFACS Parallel Algorithm Group and Rutherford Appleton Laboratory. The workshop brings together scientists from academe (including graduate students and postdoctoral researchers), government and industry. They will collaborate on practical and theoretical problems on key topics in linear algebra. The workshop on iterative methods will emphasize Krylov methods for unsymmetric problems, domain decomposition methods, multigrid methods and parallel computing. The objective is to develop faster and more robust iterative solvers for large-scale computer simulations.